Mathematical Sciences: On the Nonlinear Dynamics of Interfaces

9623006 Frankel. The main objective of this research is to study a group of free interface problems related to solid combustion and exothermic phase transitions. The one-dimensional evolution exhibits remarkable dynamical wealth, while there are indications of its essentially finite-dimensional character. The existence of a finite-dimensional attractor and nonlinear interaction of two free boundaries in a degenerate Hopf bifurcation will be investigated analytically and numerically. The Principal Investigator will also study two-dimensional evolution generated by these free interface problems. A rigorous study concerning well-posedness for problems with various boundary conditions and interface kinetics shall be combined with numerical simulation in order to understand geometry and dynamics of the curved interfaces. An alternative view of the interface dynamics is provided by coordinate-free surface evolution equations modeling basic flame instabilities which include the thermal-diffusive and the hydrodynamic instabilities. Analytical and numerical study of the surface evolution equations will be directed toward better understanding of their basic mathematical nature, such as global well-posedness, uniformly bounded curvature and smoothness of solutions, and some important dynamical features including exponential growth of length, fingering and self-fractalization that are exhibited by the solutions. %%% The proposed research is essentially devoted to the study of evolution of interfaces: the surfaces that separate the solid and the melted matter as it solidifies, or those that separate the fuel and the burned products in combustion of gaseous or solid mixtures of reactants. The latter is also known as high temperature syntheses and can be employed for manufacturing of new materials. The shape and the velocity of the interfaces as they propagate through the substance may greatly effect the structure and the physical prope rties of the resulting products. It was also demonstrated recently that evolution of flame fronts may be applied to the nuclear flames in the "supernovae" type stars. ***